Characterization of Conformal Plasma Polymer Particle Coatings

The performance of particle-polymer composite systems is critically dependent on the nature of the solid-matrix interface. Methods to integrate different surface chemistry and functionality on small particles will play a vital role in next generation composites. This work explores the utility of a novel FR-plasma conformal particle coating technique.

The work will encompass both the effects of monomer sources and reactor conditions on coating composition, thickness and uniformity. These attributes will be investigated using FTIR (-ATR), TEM and XPS. Work will also explore the effects of coating composition on the dispersion and rheological behavior of highly filled A1N and BN/polymer systems.

The preliminary work has been sponsored with seed funding from the Industry/University Cooperative Research Center for Micro-Engineered Materials at the University of New Mexico.